FSML: Enhancing Harvard Forest's Study of Forest Response to Disturbance: A Research and Education Program Investigating Ecosystem Dynamics in New England

Over the past ten years the Harvard Forest has developed an integrated and cross-disciplinary research and educational program involving researchers and students from across the northeastern U.S. that focuses on the response of forest ecosystems to disturbance and stress resulting from natural and anthropogenic processes. This program is structured around six approaches: (1) reconstructive studies; (2) long- term measurement and observation; (3) experimental manipulations; (4) controlled environment studies; (5) integration of results within our research group and collaboratively with other research groups; and (6) application of results to policy issues in natural resource management, conservation biology, and human health and environment. The pressing need for expanded new facilities to accommodate the growing numbers of visiting scientists and students led to the development of a ten-year plan for the renovation and construction of additional laboratories, office space, archival facilities, housing, and computer telecommunications and networking systems. With support from Harvard University and NSF, this plan has been substantially accomplished. The remaining major project is the development of housing and meeting space for visiting students and researchers. A recent gift of property directly contiguous to the main Harvard Forest buildings presents the opportunity to complete this final element in our ten-year plan. The property consists of one large house (the Fisher House with 13 bedrooms and 5 baths), a caretaker's cottage, outbuildings and 20 ha of forest land. due to its large size, ideal location and solid construction, the Fisher House represents a perfect opportunity for the development of free-standing accommodations that are desperately needed for our large visitor and collaborator groups. This project will renovate and restore this facility for educational and research purposes using joint funding from Harvard University and NSF> The comp leted structure will greatly enhance science and education in ecology by increasing our capability to serve and to integrate the diverse array of students, researchers, and visitors who comprise our extended community. This facilities development will also directly improve research operations for collaborating scientists by removing non-research uses (i.e. housing) from our main office, laboratory and administrative building (Shaler Hall) and freeing up approximately 2300 sq. ft of new office and work space in ten rooms in Shaler Hall.